Strongly Correlated Electron Systems

0105431
Schlottmann

This grant to support theoretical research on strongly correlated electron systems is coordinated with a similar grant at DOE. The topics to be studied include heavy fermions, related mixed valent phenomena, properties of manganites, and integrable one-dimensional models of correlated electrons and magnetism.
%%%
This grant to support theoretical research on strongly correlated electron systems is coordinated with a similar grant at DOE. The topics to be studied include heavy fermions, related mixed valent phenomena, properties of manganites, and integrable one-dimensional models of correlated electrons and magnetism.
***